Vibrational Energy Transfer and Shock Waves in Molecular Materials

9714843 Dlott The goal of this work is to understand the mechanical dynamics of molecular materials, and to relate the dynamics to chemical reactivity and function. The proposed work falls into two distinct areas, (1) vibrational energy transfer and (2) shock waves in materials. Simple liquids, such as acetonitrile and water, and solids such as naphthalene which are of current theoretical interest will be studied. Shock waves will be used to study shock-induced chemical reactions in simple model systems, and shock-induced material transformations and relaxation processes in complex systems such as glasses and proteins. Shock methods with greater time resolution using surface sensitive spectroscopies will be developed. Studies of laser photothermal imaging materials will be extended to a variety of imaging materials with different architectures to develop a general understanding of the fundamentals of laser photothermal imaging processing. %%% An understanding of ultrafast dynamics and shock wave induced chemistry in condensed matter systems that include liquids and solutions, polymeric solids and proteins play an important role in a number of materials areas such as biomedical applications, and photothermal laser-imaging materials for graphic arts applications. ***